Postdoctoral Research Fellowships in Chemistry

Dr. Chad A. Mirkin has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Mirkin's doctoral degree was from the University of Pennsylvania under the supervision of Professor Gregory Geoffroy. Dr. Mirkin intends to continue research at MIT under the sponsorship of Professor Mark Wrighton. Dr. Mirkin's area of postdoctoral training and research will be the development of microelectrode devices capable of effecting electrocatalysis. Initially he will develop a microelectrode which will use macrocycles to detect Lithium. This training will provide him with the background to design other catalytic electrodes which may be used for oxygen atom transfer reactions. The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D's and attract them into meaningful careers in contemporary chemical research and teaching.